U.S.-Venezuela Workshop on Recent Advances in Statistics & Econometrics: Caracas, December 7-13, 1992

This U.S.-Venezuela award will support a research workshop on recent advances in statistics and econometrics. The workshop, which is being organized by Professor Arnold Zellner of the University of Chicago and Professor Luis Pericchi of the Universidad Simon Bolivar in Caracas, Venezuela, is part of the Conference Series on Econometrics and Mathematical Economics (CEME), a series of semi- annual meetings that has done much to promote research in this area. This workshop, which builds on previous successful workshops on the general topic in Mexico and Brazil, is important in that it will serve to bring together leading econometricians and statisticians in Latin America and the United States to present and discuss their research.